SBIR Phase I: Shape Selective Hydrogenation of Benzene to Cyclohexene

9560625 Mariwala This Small Business Innovative Research Phase I project will develop a molecular sieve catalyst for selective hydrogenation of benzene to cyclohexene. Currently, no commercial catalyst is available for shape selective cyclohexene synthesis. The molecular sieve catalyst will combine the two unit operations of reaction and separation into a single reactive separation step. The selective synthesis will be accomplished by shape and size selective discrimination of molecules involved in the reaction. In Phase I, molecular sieve catalysts will be prepared for selective synthesis of cyclohexene. The catalyst will be characterized for structure, morphology, and metal content. The catalysts will be tested for shape selective hydrogenation activity. Cyclohexene is expected to be a major feed stock for bulk chemical production and an important chemical intermediate for specialty chemical industry. Use of cyclohexene as a feed stock offers significant environmental, operational and economic advantages.